Engineering Research Equipment Grant: Attenuated Total Reflectance/Fourier Transform Infrared Spectrometer Purchase

A FOURIER TRANSFORM INFRARED (FT-IR) Spectrometer with Attenuated Total Reflectance (ATR) capabilities is being purchased for the dedicated use of faculty within the Center for Biochemical Engineering. No such instrument exists within the School of Engineering. The nearest FT-IR spectrometer resides in the Chemistry Department at Duke and its use is dedicated to non-biological samples. On-going and future projects of the principal investigators currently requiring an ATR/FT-IR spectrometer include: In-Situ ATR/FT-IR SPECTROSCOPY OF BACTERIAL ADHESION AND BIOFILM FORMATION 1. Molecular Chemistry of Bacterial Adhesion and Immobilized Cell Physiology 2. Macromolecule Mass Transport Through Bacterial Biofilms 3. Mechanisms Governing Bacterial Biofilm Sloughing ATR/FT-IR SPECTROSCOPY OF ADSORBED PROTEIN FILMS 1. Protein Denaturation Upon Adsorption 2. Effects of Physiochemical Nature of Substratum on Adsorbed Protein Films 3. Mechanisms of Ligand binding to Adsorbed Proteins ATR/FT-IR SPECTROSCOPY OF ANCHORAGE-DEPENDENT MAMMALIAN CELL PROCESSES 1. Substratum Pretreatment Effects on Anchorage-Dependent Mammalian Cell Adhesion 2. Shear Stress and Growth Factor Effects on Anchorage- Dependent Mammalian Cell Physiology